Computational Studies of Parameter Setting in Language

The problem of developing an appropriate and workable computational theory of parameter-setting in language is a central problem for linguistic theory, language acquisition, learning theory and cognitive science in general. The purpose of this grant is to make a significant increase, compared to previous studies, in the size and scope of the syntactic parameter spaces, and to do computational parameter-setting investigations of these parameter spaces. We plan to investigate the learning of a space of 256 grammars or larger, based on 8 parameters (plus a "lexical" parameter). The major questions that we will investigate include: 1. With a larger set of parameters, does the theory of parameter-setting work (i.e., for all natural languages stated in terms of those parameters, does the algorithm converge)? 2. Do different algorithms work better than others? 3. What are the kinds of special assumptions about markedness or default values that work in the specific parameter spaces that we study? Are there general principles of markedness or default values that seem to apply to many different parameters? Are default values necessary in general? 4. What happens to computational results in parameter-setting when we "scale up" ? That is, if a certain pattern of results obtains for a parameter-space, do we find that this pattern remains when the space is embedded in a larger space? Or were the results artifacts of the smaller space? 5. Suppose that an algorithm converges on the correct parameter-settings for a class of parameter-settings that we know is instantiated (i.e., there are natural languages which exhibit these parameter-settings), but doesn't converge for some other parameter-settings. Can we show that these parameter-settings are not instantiated in natural language, so that in fact there are reasons of learnability that some parameter-settings don't show up? 6. How fast do particular algorithms converge? This can be stated in terms of the number of examples t hat need to be given. Are some algorithms more realistic than others in this regard? 7. What is the relation of the properties of the algorithms to empirical research in language acquisition? Can early properties of acquisition be shown to relate to the algorithms?